Functional Imaging: Regional Flow and Volume Assessment

9410669 Clough This Career Advancement Grant Award was designed to develop additional collaboration with other researchers in the field, as well extend the principal investigator's current knowledge of functional imaging and biomathematical modeling techniques. To effect this, a research-oriented sabbatical leave to the Center for Bioengineering's National Simulation Resource for Circulatory Mass Transport and Exchange at the University of Washington is funded. The laboratory has expertise in modeling and simulation of biological transport processes, multiple indicator dilution techniques, metabolic transformation processes and functional imaging. ***